Quantitative Discrimination of Tectonic and Eustatic Processes During Deposition of Pennsylvanian Cyclothems

This research will use quantitative methods to discriminate tectonic from eustatic components of sea level change during deposition of Pennsylvanian cyclothems of North America and Northwest Europe. Techniques to be used include (1) quantitative tectonic subsidence analysis, back-stripped with corrections for compaction, sediment load, paleodepth and sea level change, (2) calculation of tectonic plate stress and its effect on sea level change, and (3) determination of the present-day elevation of Pennsylvanian shoreline sediments so as to identify Pennsylvanian paleo-sealevel on a stable reference datum. New criteria of the preserved position of sea level (so-called "sea level markers") in coastal sedimentary rocks are available now to constrain the range of such determinations. Paleodepths can be identified from this datum by measuring the decompacted thickness of vertical sequences of shoreline facies. The decompacted thickness of barrier island and tidal flat vertical sequences provides a numerical estimate of the magnitude of eustatic change in sea level, and will be used to make the eustatic sea level correction for tecotnic subsidence analysis. Expected results include determining the exact present-day elevation of Pennsylvanian sea level, and the numerical magnitude of both eustatic and tectonic components of Pennsylvanian sea level change. The approach to be tested herein can then be used to make similar determinations of eustatic and tectonic controls on sea level in sedimentary rocks representing other periods of earth history.